Mathematical Sciences Computing Research Environments

9406613 Fornaess The Department of Mathematics at the University of Michigan will purchase equipment which will be dedicated to the support of research in the Mathematical Sciences. The Department has undertaken several projects involving the use of advanced Unix workstations to (i) explore Mathematics using computational and visualization tools; and (ii) give vigorous computer-assisted proofs.